Presidential Young Investigator Awards

This Presidential Young Investigator Award will focus on theoretical studies of polymeric systems; particularly, the phase and interfacial behavior of polymeric materials. Three general subject areas will be addressed: (1) Phase behavior of blends with block copolymers; (2) Interfacial properties of liquid crystal copolymers; (3) Phase separation of polymer solutions under flow.